Evolution of Dental Development in Anthropoid Primates

The objective of this research is to clarify the relationship of dental development patterns to the life histories of anthropoid primates as well as increasing our knowledge of growth and development in human and non-human primates. There has been a long-standing discussion as to the maturation rates in human ancestors. Some feel that their maturation resembled tht of modern humans; thus indicating a long period of childhood dependency in our ancestors. Others have argued against this perspective; holding that their maturation was neither human-like, nor ape-like. The proposed research will help to resolve this debate and paint a clearer picture of the maturation pattern of earlier humans. Four specific projects will be undertaken: 1) a comparative study of tooth emergence sequence in anthropoids 2) a comparative study of tooth formation patterns in anthropoids 3) development of standards for the determination of non- human anthropoid age from dental data 4) a survey of the literature on the development of mammalian dentition. This basic data is of central to the ability to compare development between species.